Interfacial Shapes in the Design of Composite Polymeric Materials

Renardy 9307238 This chemical research thermal project concerns the shape of the interface separating two immiscible liquids in chemical and thermals systems. Two-fluid exhibit phenomena which are totally unexpected from a knowledge of one-fluid flows and form a subject rich in interdisciplinary science. Industrial applications include the formation of bicomponent fibers such as nylons and the production of photographic films. Theoretically, there are often many possibilities for the shape of the boundary separating the two fluids. In addition, experiments show that some shapes are preferred over others, so that the selection mechanisms should be investigated with the goal of lessening the gap between theoretical prediction and experimental results. The effect of dissolved additives and temperature gradients, and the consideration of heat and mass transfer at an interface are important in many chemical processes. Physical modeling, analytical and computational techniques will be used by the proposer to study the stability of various interface shapes, and the appearance of new arrangements from unstable ones. The mechanical properties of composite materials are strongly dependent on interface shapes. Thus, an understanding of the effects of the component properties on interface shape is of practical importance. ***